Thresholds and the Expected Timing of Discrete Policy Changes

What determines private sector expectations about the likely timing of discrete changes in government policy? For example, Central Banks often have control over policy instruments -- such as a nominal exchange rate or a key interest rate -- that can be adjusted discrete and suddenly. Mark participants appear to form expectations about when these adjustments will occur (and about how large they will be) and these expectations influence their behavior. Import payments may be accelerated and exports postponed in anticipation of a devaluation. Similarly, anticipated changes in interest rates may affect the timing of housing purchases or other investment decisions. One intuitively appealing model of how market participants might formulate their expectations is a "Threshold" model in which policy changes are expected to occur when some underlying indicator(s) cross a critical threshold. The contribution of this research comes from (1) deriving a Threshold model to explain the actual and expected timing of discrete policy changes; (2) developing a methodology for empirically estimating and testing the Threshold model; and (3) suing the Threshold model to study a number of types of discrete policy changes. Under certain assumptions the probability functions describing the expected timing of policy changes will come from an Inverse Gaussian distribution. This formulation of the Threshold model will be used to study the actual timing of policy changes as well. Previous work by the investigator on realignments in the European Monetary System will be extended. Future research will include a theoretical and empirical analysis of the expectations about the timing of changes in key U.S. interest rates.